Mathematical Sciences: Workshop on Algebraic Vector Bundles

In recent years, there has been a great deal of interest, from different points of view, in vector bundles in algebraic geometry. Several topics of interest in this field include moduli of vector bundles on a Riemann surface, moduli of vector bundles on algebraic surfaces, linear series and vector bundles, and vector bundles on projective spaces. This project will support the Workshop on Algebraic Vector Bundles to be held from October 16-19, 1992 at the University of California, Los Angeles. It is anticipated that researchers will be brought together from several subareas of the field, in the hope of stimulating interaction between different outlooks. One of the principal objectives of the workshop will be to expose newer researchers in algebraic geometry to this area.